Special Project: 6th Annual MU-SPIN Conference (1996) and Supplemental Support for on-campus Regional Training Workshop

9634182 Harrington, James Bennett, Jerome NASA Goddard Space Flight Center Special Project: 6th Annual MU-SPIN Conference (1996) and Supplemental Support for on-campus Regional Training Workshop This interagency transfer purpose is to partially support a large conference and supplemental smaller workshops on high performance computing and communications and infrastructure development for minority institutions. NASA, through its National Space Science Data Center, has developed a program called the Minority University Space Interdisciplinary Network (MU-Spin). The program constitutes a major networking and education initiative for minority institutions, and other universities with large minority student enrollments. Connecting these institutions with the NASA Science Network, and promoting the activities such connections provide serve as primary goal of the program. ***